Using Technology to Enhance the Teaching of Precalculus and Calculus

Each year for two years, a faculty enhancement program is being offered to 25 faculty members from a groups of universities and two-year colleges in Puerto Rico. As a short term goal, the program aims to introduce mathematics faculty members to the use of technology in the undergraduate mathematics classroom as a way of enhancing their teaching as well as the learning experiences of their students. Because the program is targeting academic institutions and students of modest economic means, there is a focus on technology which is relatively inexpensive. This will allow participating colleges and universities to implement what they learn on a large scale. The workshop will focus on topics in precalculus and calculus. Follow-up activities are establishing a base for continued collaboration among participating institutions on issues concerning the use of technology and other curriculum matters in undergraduate mathematics education. The program consists of three main activities: software workshops, graphic calculator workshops, and a conference cycle.***//